CSBR: Natural History: Digitized Images from the Cornell University Insect Collection Support D.I.Y. Entomological Training

Characters used to differentiate the vast diversity of insect species are often available only in primary taxonomic publications, making the specific criteria used for recognizing species difficult to access by individuals outside major research institutions. This is especially true for North American moths (Lepidoptera), within which many species lack scientific names. Natural history collections contain substantial amounts of untapped information concerning North American biodiversity that is largely unavailable to non-scientists. The digital revolution that is allowing the integration of photographic images and associated information permits the availability of information on species diversity along with the criteria used to separate species to anyone with internet access. Moreover, the end-user of such information can make important contributions to the knowledge of our fauna if they are given appropriate information on methods used to characterize species.

The Cornell University Insect Collection (CUIC) includes a major North American moth collection, with extensive representation of moth species from much of the United States, especially the mountain forest habitats of the American southwest. The CUIC Lepidoptera holdings total 1.7 million specimens and are currently stored as four separate, parallel collections. These specimens will be integrated into a single comprehensive moth collection reflecting modern classification and up-to-date nomenclature. The currently parallel collections, housed under cramped and partially unsafe storage conditions, will be rehoused in expanded cabinetry incorporating archival storage materials, ensuring long-term preservation of the specimens and full access to all material by researchers. These tasks will be conducted by undergraduate student employees who will receive training in curation and insect taxonomy. Approximately 8700 adult specimens representing at least 2800 species of North American moths will be photographed along with their associated microscope slide-mounted genitalic preparations. These images with associated label data will be uploaded onto the NSF supported Morphbank website, making all images and information available for moth identification or taxonomic description. Approximately 1500 of the specimens in this special collection have never been assigned to a known, described species, supporting their status as representatives of undescribed, cryptic species. An M.S. graduate student will conduct thesis research that emphasizes the use of moth anatomical characters for species discrimination and description. This student will also develop short educational videos that explain various aspects of moth taxonomy, including how to collect moths, how to dissect moths, and how to identify and interpret the morphological characters used for moth identification and taxonomic description. These videos will target knowledgeable amateurs of all ages, thereby integrating the substantial community of citizen scientists into a larger effort to understand our moth fauna. The adult and genitalic moth images will be made available at Morphbank (www.morphbank.net) and shared with iDigBio (www.idigbio.org). The internet videos as well as the moth images will be linked to the Cornell University Insect Collection website (cuic.entomology.cornell.edu).